Incorporation of Fourier Transform NMR into the Community College Organic Chemistry Curriculum

The college is incorporating FT-NMR into its courses to strengthen an already successful program. To reach this goal, the college is purchasing a Hitachi R-1500, a Fourier transform spectrometer operating at 60 MHz for 1H, and a 486 computer to provide a necessary data station. By incorporating FT-NMR into the organic chemistry courses, the college provides students concrete experience in FT-NMR spectroscopy and computer-operated instrumentation. NMR theory is taught early in lectures so that laboratory experiments involving NMR are continuous throughout the courses. Lectures include the basic theory of Fourier Transform NMR, emphasizing the effects of radio frequency pulses and the benefits of signal averaging. With the goal of fully utilizing the capabilities of the FT-NMR instrument, the college is enhancing pre-existing experiments and introducing new experiments.